Collaborative Research: Engaging Introductory Astronomy Students in Authentic Research through Citizen Science

This project will build upon the infrastructure of Zooniverse.org to create authentic research experiences for introductory astronomy students. Education research indicates that including authentic research in science classes improves attitudes towards science and scientists in a diverse cross-section of students. The curriculum materials will be tested and refined at a broad spectrum of institutional settings before dissemination.

Introductory astronomy generally provides students little insight into the realities of being a scientist. This project will address this deficiency by introducing an authentic research experience for students into the astronomy for non-majors curriculum. It will utilize the classification and meta-data exploration capabilities of the Zooniverse platform. The proposed course curriculum will support students in building foundational research skills and practices through a series of in-class activities and a semester-long group research project. These activities will employ a state-of-the-art online platform to explore data collection, manipulation, and interpretation within the core topics in the curriculum. The project team will assess student learning and attitudinal gains through traditional in-class testing and conceptual questioning that is embedded within the Zooniverse online environment, as well as student interviews. This includes assessing the impact of the research experience on students' understanding of the nature of science, conceptual astronomy learning gains (e.g. the Zooniverse Astronomical Concept Survey, Prather et al, 2013), and interest in pursuing a STEM major. The team will also assess the impact of different implementations of the online platform as well as the ease of implementation of the new curricular materials in a variety of institutional settings, course structures, and content focus. They will use the insight gained to develop the most effective curricular and training materials. All curricular materials, instructional guides, online Zooniverse tools, and underlying code will be widely disseminated.